Cloning of Plasma Membrane IP3 Receptor of Olfactory Tissue

Sensory transduction is the process by which a receptor cell becomes activated physiologically in response to a particular stimulus. In the olfactory system, some stimuli trigger the generation inside the cell of a class of molecule called a second messenger, in this case a compound called inositol triphosphate, IP3. Recent experiments suggest this IP3 in turn binds to a protein in the cell membrane, and that protein then functions to change the flow of ions through the membrane, and activate the cell by depolarizing it. This IP3 receptor protein is thus a key component of olfactory transduction, but relatively little is currently known about it. This pilot Small Grants for Exploratory Research (SGER) project will utilize molecular biological techniques, instead of the more usual biochemical approach, to isolate clones of the receptor, for further biochemical and physiological analyses of the protein and its role. The molecular approach promises a high yield of characterized protein. If successful with this novel approach, the impact will be on cell biology in general, since IP3 is important in several membrane functions in addition to its central role in olfactory sensory transduction.